Short-term Return Visit to University of Salford, Salford, England; July 11-21, 1985

Assistance is provided for travel to the Department of Chemistry and Applied Chemistry at the University of Salford, in Salford, England, for 10 days during the summer of 1985 as a follow-up to the sabbatical spent there during the 1983-84 academic year. The purpose of the visit is to finalize some details of the previous year's research activities and confer with staff regarding future research resulting from the previous year's work. In addition, the principal investigator is attending the British Zeolite Association meeting in Chester on July 17-19, 1985, presenting a lecture at the New Science Group facility of ICI-Runcorn, and meeting with staff of the University of Manchester U.S.-U.K. faculty exchange program.